Combined Research-Curriculum Development in Computer Vision

0088086
Bebis, George
University of Nevada Reno

Combined Research-Curriculum Development in Computer Vision

This project integrates recent and ongoing research in computer vision into this institution's computer science and engineering curriculum. There are several objectives for this project. One is the design, implementation, and testing of innovative approaches for integrating teaching with research, leading to a comprehensive instructional program offering systematic and constant research experiences to as many students as possible. To this end, students are included in summer research programs involving computer vision. Another objective of the project is the integration of computer vision principles into several core courses and the introduction of a new course in mathematical methods for computer vision to support the integration of vision research into core courses. The final objective is the development of a new course in object recognition that includes current research advances and evolving principles of object recognition. The evaluation of the success of educational techniques and the dissemination of the results of this activity are critical elements of the project.